Sixteenth International Conference on the Application of Accelerators in Research and Industry

0092685
Duggan
The Sixteenth Conference of the Application of Accelerators in
Research and Industry will take place on the campus of the
University of North Texas November 1-4, 2000. The conference will
be attended by 1000 participants from over 50 countries. The topics
covered in the conference cover a wide variety of basic and applied
uses of accelerators. There will be a medical symposium within the
conference. This award will be used to support participation from
graduate students and junior investigators.